Relaxing the Brightness Constancy Assumption in Motion Vision

This Research Initiation Award is for analysis of time-varying imagery when the camera and light source are both moving relative to objects in a scene. This extends optic-flow techniques developed for camera or object motion with a constant light source. Applications include passive vision in outer space and active vision under water or in reconnaisance situations. Industrial robotic applications may also be developed.